Workshop on Mechanical Tolerancing for Design, Manufacturingand Inspection

A workshop to identify research needs and opportunities for significant impact in establishment of the functionality of mechanical tolerances. A series of industrial site visits with participants from industry, government and universities will be conducted. A description and assessment of the research areas will be summarized in a report to the National Science Foundation.